Ennvironmental Ethanol as a Potential Factor Maintaining theAlcohol Dehydrogenase Polymorphism in Drosophila Melanogaster

Long-term Research: Environmental Ethanol as a Potential Factor Maintaining the Alcohol Dehydrogenase Polymorphism in Drosophila Melanogaster This award recommendation is made under the Program for Long and Medium-Term Research at Foreign Centers of Excellence. The program is designed to enable young U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. The award will support a 15-month research visit by Dr. J. Fry, University of Michigan Ann Arbor, with Dr. Jean R. David, Laboratoire de Biologie et Genetique Evolutives, Centre National de la Recherche Scientifique, Gif-sur-Yvette, France. The award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents' allowance, if applicable, and a flat administrative allowance of $250.00 for the U.S. home institution.